Object-Based Concurrent Programming

The applications that will be implemented on future high-bandwidth networks of processors will be significantly more ambitious than the current applications (which are mostly involved with transmissions of digital data and images). This project attempts to develop an object-based model of concurrent programming for these applications, that permits the programmer to employ a largely sequential style of programming for concurrent threads. Concepts developed for databases, object-based programming and reactive systems form the basis of this model. The model is minimal: no specific communication or synchronization mechanism, except procedure call, is built into this model. The traditional schemes for communication, synchronization, interfaces among processes and accesses to shared memory are encoded by objects. Concurrency is transparent to the programmer; the programmer believes that the program executes in a sequential manner whereas the implementation employs concurrent threads to gain efficiency. The project plan is to solidify the theoretical foundation of the work, and extend the basis of the model to make it more useful in practice, introducing real time, dynamic object creation, more general forms of parameter passing among object instances, and recursive calls among concurrent threads.